Numerical and Analytical Studies of Radio Galaxies and Active Galactic Nuclei

This research is aimed at an understanding of the relationship between active galactic nuclei (AGN) and giant radio galaxies, the largest known connected objects in the universe. The variability observed in the radiation of AGN is believed to be related to gas flows into supermassive black holed, and radio galaxies are observed to be fed by jets which emanate from AGN. Utilizing hydrodynamic codes on supercomputers, jet propagation through galactic and extragalactic media will be studied.